Integrated Analytic-Numeric Study of Spacetimes with Symmetries

This project shall investigate the theory of junction conditions for the field equations of gravitation theory and develop algorithms for their numerical treatment. The problem of the numerical solution of colliding gravitational waves shall also be examined.